Conference on Analysis and Geometry of Dirac Operators

Abstract

Award: DMS-0709561
Principal Investigators: Krzysztof P. Wojciechowski, Slawomir Klimek

We propose to organize a conference on applications of Dirac
operators in geometry, topology and quantum field theory at the
Department of Mathematical Sciences of the Indiana University -
Purdue University at Indianapolis from Friday to Saturday, March
2-3, 2007. The main purpose of the conference is to create an
opportunity to present and discuss some of the most recent and
important results in the aforementioned area of mathematics.

The tentative list of speakers includes
1. W. Muller (Bonn University) who will talk about the relation
between the spectral analysis of Dirac operators and the Selberg
Program.
2. A. Carey (ANU Canberra) is expected to talk about his recent
work on spectral flow and the spectral shift function.
3. J. Dodziuk (CUNY New York) will talk about Laplacians on
graphs.
4. M. Braverman (NEU) will talk about generalized analytic
torsion and eta-invariant.
5. S. Stolz (Notre Dame) will talk about applications of Dirac
operators in algebraic topology.
6. L. Nicolaescu (Notre Dame) will talk about his research on
singularities.
7. P. Kirk (IU at Bloomington) will talk about applications of
eta invariant and spectral flow to the study of the topology of
3-manifolds.
We have also scheduled several talks by graduate students who are
about to complete their PhD theses on related topics.

This meeting has a long and outstanding tradition dating back to
1994. It is well-advertised within the Indiana math community. It
is recognized as an event having a unique atmosphere with a
mixture of presentations of new results and a lot of interaction
between older and younger generations of mathematicians. The list
of speakers includes many famous mathematicians whose work is
related to Dirac operators. Previous meetings have resulted in
several important collaborations by the participants published in
journals of the highest quality . This year we are going to make
an extra effort in order to bring the Conference to the attention
of the math community on a national level and we are going
actively pursue graduate students with research interest related
to the Conference.

For more information, see the conference Web site,
http://www.math.iupui.edu/dirac2007.